Spectroscopic, Electrochemical and Computational Investigations of Aequorea Green Fluorescent Protein

This award is a Research Planning Grant in the Organic Dynamics Program of the Chemistry Division. With these funds, Professor Kimberley Waldron of Regis University will study green fluorescent protein from the organism Aequorea. This protein is believed to fluoresce as a result of intramolecular cyclization of sequential amino acids. The fully fluorescent protein can be expressed in a wide variety of cell types and as a consequence is of active interest in the cell and developmental biology communities. This work will use fluorescence and Fourier transform infrared spectroscopies, spectroelectrochemistry, and molecular modeling to characterize the fluorophore/electrophore and to probe three-dimensional interactions. Standard molecular biological techniques will be used to create native and mutant protein. Were science able to insert a characteristic fluorescent group into arbitrary proteins a powerful general analytical tool for study and identification of such molecules would result. The significance of achieving such a goal is manifold, since many biotechnological applications currently use fluorescence technology. This work will begin the characterization of a specific fluorescent segment of a protein that holds substantial promise for meeting this goal.